Industry/University Cooperative Research Center Renewal: Center for Design of Analog-Digital Integrated Ciruits

ABSTRACT
EEC-9908204
RINGO

This award funds the second five years of the multi-university Industry/University Cooperative Research Center (I/UCRC) for Design of Analog/Digital Integrated Circuits in accordance with NSF Announcement 97-164. The lead university is Washington State University, with research partners at the University of Washington and Oregon State University and an affiliate research sites at the State University of New York at Stoney Brook. The Center meets the I/UCRC Program requirements.

The research agenda for the Center addresses 1.) Compact Modeling of One-Dimensional Distributed Elements, 2.) High Speed A/D Conversion for Communication Applications, 3.) Low Frequency Noise, 4.) Low Sensitivity High Order Modulators for Oversampling A/D Converters, 5.) Development of RF Equivalent Circuit Models from Physics-Based Device Model, 6.) Design of Low Phase Noise Sub-micron CMOS VCOs, 7.) CMOS RF Power Transistor Modeling and Simulation, 8.) Methodology for Design of High-Voltage CMOS Transistors in Standard Sub-Micron CMOS Process, 9.) Ultra-High Speed Circuit Synthesis and Layout, 10.) Deep-Submicron Analog Layout Automation for Performance and Manufacturability, 11.) Adapative DSP Compensation for Analog Distortions in 2.4 and 5.8 GH3 Transreceivers, 12.) Switched-Capacitor Circuits in Digital CMOS Technology, 13.) On-Chip Interconnect Models for High Frequency/Speed Integrated Circuits and 14.) An Adaptive Technique for A/D Conversion on Focal Plans.